Postdoctoral Research Fellowships in Chemistry

9403129 Geiger Dr. Cherie L. Geiger has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Geiger received her doctoral degree from the University of South Florida under the supervision of Professor Christian Clausen. Dr. Geiger will continue research at the University of Central Florida under the sponsorship of Professor Debra Reinhart. Her postdoctoral research will focus on the mechanism of transport and analysis of chemicals interned at municipal solid waste landfills. Elements of the research will include computer modeling of gas generation and transport, improved sampling methods, and development of GC and CG-MS analytical methods. Longer term, she plans to apply her postdoctoral training to study subsurface contamination from agricultural chemicals. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D.s and attract them into meaningful careers in contemporary chemical research and teaching.